Mathematical Sciences: Connections Between Divisor Class Groups and Descent of Modules

For a normal, local domain R, the principal investigator will study conditions under which modules over the completion descend to modules over the ring R. This will involve an examination of the descent properties of special morphisms. In addition, the principal investigator will construct low dimensional non-Cohen Macaulay factorization domains in characteristic zero. This project is in the general area of commutative algebra. The problems to be examined come out of questions inalgebraic geometry.